CAREER: Practical verification of outsourced computations

Many computing services are moving to the "cloud" because cloud
computing offers economic and operational benefits. However, cloud
services not only are complex black boxes operated by third parties but
also refuse to give service guarantees. Thus, instead of trying to make
cloud services more trustworthy (that is, giving customers reasons to
place faith in the cloud), this project explicitly removes trust from
the cloud: the project is building systems that give cloud customers
guarantees, even under arbitrary service malfunctions. Two such systems
concern storage and function computation.

Under the storage system, the challenge is to use client-side
verification to resist arbitrary or malicious cloud malfunctions (losing
data, returning stale data, corrupting data, compromising data, etc.).
Under the function computation system, a client specifies a computation
to a server, the server executes it and returns the output and auxiliary
information, and the client uses the auxiliary information to
efficiently check whether the output is correct. The approach is to
adapt, and translate into practice, a fascinating body of theory (on
probabilistically checkable and interactive proofs) that is currently
thought to be impractical.

With qualitative advances in reliable yet practical computing, this
project will make cloud computing safer for existing customers and spur
the adoption of cloud services. This will mean more people paying less
for computing, producing beneficial effects throughout the computational
ecosystem. The educational thrusts include teaching graduate students to
teach (applying the K-12 student teaching model), graduate and
undergraduate mentoring, curriculum development, and outreach to
underrepresented groups.